Oceanographic Instrumentation

Proposal #: 93-22486 This award provides funding to purchase shipboard instrumentation in support of NSF-funded research. The instruments will be used aboard the R/V WECOMA, a 177 foot vessel, which is owned by NSF and operated by Oregon State University. Instrumentation requested includes upgrades for the computer network aboard the ship, a towing sheave for the SeaSoar, a dissolved oxygen titration system, and upgrades to the rosette package. The instrumentation is requested for support of NSF-funded cruises aboard the WECOMA during 1994 and will enhance the scientific capability of the vessel in the future.